Enabling Technology for Ultra-High Speed Wireless Communications

The objective of this proposal is to study the feasibility of delivering ultra-high data rates up to 1 Gbits/s to a mobile, wireless node through advances in the design of compact antenna arrays, modulation and error control coding/joint decoding techniques, and signal processing under high data rate and limited computing power environments. The technologies emphasized in our work are (1) novel design methods for patch antenna arrays, (2) recursive, nonlinear decoder structures that employ iterative decoding techniques similar to Turbo decoding, and channel estimation algorithms that utilize preliminary, probabilistic information from the iterative decoders, and (3) computationally ecient adaptation algorithms for estimating and predicting time-varying channel characteristics as well as steering the antenna patterns for nulling the signals arriving from the interfering users in a network. As part of our work, we propose to design and prototype a laptop system that integrates all three components listed above. While our studies will be more general in nature, we plan to use spread spectrum multiple access systems as the base technology for much of the experimental phase
of the work.